Star Porphyrazines, Solitaire Phthalocyanines and Related Multimetallic Macrocycles

Dr. Brian M. Hoffman, Chemistry Department, Northwestern University, is supported by the Inorganic, Bioinorganic, and Organometallic Chemistry Program of the Chemistry Division for a collaborative project with Dr. Anthony G. M. Barrett, Chemistry Department, Imperial College of Science and Technology, London, England, aimed at synthesis and study of star porphyrazines, solitaire phthalocyanines and related multimetallic macrocycles. A series of porphyrazines that are peripherally substituted with heteroatoms will be synthesized. These will be converted into complexes with metals bound to the peripheral heteroatoms and to the core of the central macrocycle. Extended arrays will be formed by connecting several of the metalla-porphyrazine units through peripheral metal bridges. The resultant complexes will have unusual spectroscopic, magnetic, or electrical properties properties due to electron delocalization and metal-metal interactions through the macrocyclic pi-system. Compounds which contain several metals often have unique magnetic and electronic properties. In this project a series of such materials will be prepared. The specific design involves a central metal which is surrounded by a rigid structure of other atoms (a macrocyclic ligand) to which additional metals are attached. This results in star-shaped or linear arrays of metal atoms. These are expected to have a diversity of applications including biomedical optical imaging, optical sensors, the separation of chiral substances, and catalysis. The project involves the collaboration between a group in England, where the macrocylic ligands will be prepared, and one at Northwestern University, which will be responsible for the conversion of the ligands into metal complexes. Students will be exchanged between the groups and thus will receive an extremely broad training in synthetic organic and metal chemistries. The collaboration also provides the opportunity for US students to experience the international aspects of modern science.